Glacial-Interglacial Variations in Late Paleozoic Atmospheric Circulation Inferred from Loessite-Paleosol Couplets of Western Equatorial Pangea

Earth's climate during the late Paleozoic (ca. 300 Ma) was profoundly affected by both large-scale
continental glaciation and monsoonal circulation. Accordingly, key elements of its climate exhibit
parallels to Earth's modern climate, which has intrigued both those who model climate, and those who
reconstruct climate using proxy data. Validation and further sophistication of climate models of this
interval are hampered, however, by low-resolution geologic datasets. That is, although the broad strokes
of Pangea's climate system are well established, many aspects remain unconstrained.
Preliminary geochronologic and sedimentologic data collected by the PIs from a lower Permian
loessite-paleosol couplet in the study region document a profound shift in equatorial wind direction and
strength; the PIs hypothesize that this shift signals a geologically abrupt change in the intensity of
monsoonal circulation of western Pangea between glacials, and interglacials. The objective of the
proposed study, therefore, is to examine and characterize in detail the character, variability, and
chronology of such high-frequency shifts in atmospheric circulation in western equatorial Pangea, just
before and after onset of monsoonal conditions. To achieve this, the PIs and students will study loessite
(eolian silt) and intercalated paleosols that record alternating glacial-interglacial states. The PIs have
targeted for study loessite-paleosol couplets that represent wide geographic coverage in western
equatorial Pangea (western U.S.), and that date from (1) middle-late Pennsylvanian (zonal), and (2) early
Permian (monsoonal) times. Each study couplet will be subjected to several previously-tested techniques
including detrital-zircon based provenance analysis, magnetic susceptibility, whole-rock geochemistry,
and grain-size analysis as proxies for various climatic parameters including wind direction, strength, and
seasonality, and relative aridity. High-precision, radio-isotopic (U-Pb) dating of the youngest (volcanic)
detrital zircons and some experimental dating of pedogenic carbonate will be used to improve absolute
age constraints on the target couplets, and constrain durations of these glacial-interglacial shifts.
Intellectual Merit of Proposed Activity-- Project results will enable examination of late Paleozoic
icehouse variations in atmospheric circulation at an unprecedented detail, and in particular, high-resolution
(glacial-interglacial) shifts in equatorial circulation during both zonal and monsoonal states of
the Pangean interval. Results will also provide improved age constraints on target strata, and durations of
climatic fluctuations, and will enable further testing of the paleosol-carbonate dating technique.
Broader Impacts Resulting from Proposed Activity "Project results will provide better constraints for
climate models of the late Paleozoic and for natural variation in climatic conditions of interglacials over
geologically long periods of time. Accordingly, results should further our understanding of Earth's
climate system in general, ultimately contributing to improved climate predictions in our modern
interglacial world. The PIs will fund and train at least two graduate students directly from this proposed
research, and have a strong commitment to, and history of, involving undergraduate geoscience majors in
their research, which they will continue in the proposed project. OU's formal agreement with Fort Valley
State University (a Historically Black University), in which upperclassmen complete their geology
degrees at OU, offers an excellent opportunity to involve minority students in this undergraduate research.
MJS has also used NSF funds to support science-education majors in undergraduate research projects, and
will actively recruit at least one such student to work on aspects of the proposed project. The project
will enhance teaching and training at all levels (undergraduate through professional). MJS teaches an
Earth System Science course for education majors, and GSS teaches advanced courses in Earth's Past
Climate and Depositional Systems; both PIs regularly utilizes case examples from their own research to
illustrate climate concepts. Furthermore, the project will enable significant cross-disciplinary training, and
involves a mixed-gender research team of sedimentologists and geochronologists. Finally, the PIs and
students will continue to disseminate results in high-profile journals and at national meetings.